Homology of Monomial and Toric Ideals

Kleiman 9700564 This project is concerned with free resolutions related to monomial ideals and toric varieties. It is in the interface between commutative algebra, algebraic geometry and combinatorics. The goal of the project is to build minimal free resolutions in some special cases, construct non-minimal structured resolutions, and obtain bounds on Betti numbers. Some of the problems are closely related to Groebner basis theory and integer programming. This is research in the field of algebraic geometry. Algebraic geometry is one of the oldest parts of modern mathematics, but one which has had a revolutionary flowering in the past quarter-century. In its origin, it treated figures that could be defined in the plane by the simplest equations, namely polynomials. Nowadays the field makes use of methods not only from algebra, but from analysis and topology, and conversely is finding application in those fields as well as in physics, theoretical computer science, and robotics.